Computer-Aided Design Hardware and Software for Integration of CAD into the Undergraduate Mechanical Engineering Curriculum.

Under this project, computer aided design will be integrated into the mechanical engineering curriculum. The laboratory will be built around the Tektronix 4125 and 4129 color graphics workstations with graphics terminals. These in turn will be networked on a Data General MV 4000. Among the improvements planned are: the incorporation of solid modeling techniques into the freshman engineering graphics, kinematic movements of linkages, thermal analysis using ANSYS, the analysis of beams using an in-house developed package, and the use of ANSYS as an analytical tool in experimental data analysis. It is expected that the laboratory will impact all four years of the students training through various exercises.